PostDoctoral Research Fellowship

This award is made as part of the FY 2023 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Ryan Alweiss is " Capacity Problems, Partition Regularity, and Polynomial Density Hales-Jewett." The host institution for the fellowship is The University of Cambridge, UK, and the sponsoring scientist is Timothy Gowers.